Composite Systems in QED and QCD: Spectra, Decays, and Production

9421408 Grotch Theoretical research continues on the structure of positronium, the Lamb shift and quarkonium. The results will have impact on ongoing experiments in QED, for precision spectroscopy and for the decay and spectra of heavy quark- antiquark systems. ***